Aspects of Quantum Gravity (Physics): ROW Award

With the general acceptance of the electroweak theory and quantum chromodynamics, there remains one barrier in theoretical physics to the ideal of the unification of all of the forces of nature: the basic incompatibility of the philosophy and techniques of quantum field theory with those of general relativity. The term quantum gravity has been coined to refer to attempts to resolve the incompatibility of these two theories, but no one is sure exactly what should be meant by this term. Many different approaches are being tried, with differing and sometimes contradictory philosophies. Three different projects are being pursued by Professor Manogue, incorporating three of these philosophies. In the new research program initiated by this ROW award, Professor Manogue will work on the description of fundamental superstrings, explore the effect of moving boundaries on the creation of particles and examine the effect of possible quantum fluctuations on the topology of spacetime.